SIMMS Integrated Mathematics: A Modeling Approach Using Technology

9616267 Lott The development, field testing, and evaluation of SIMMS (Systemic Initiative for Montana Mathematics and Science), a four-year secondary school mathematics curriculum, is being completed. This curriculum integrates topics within mathematics, emphasizes the relation between mathematics and other disciplines, and makes extensive use of technology in laboratory based activities. The emphasis for this phase of the development is on field testing, evaluation, and revisions, with special attention to testing the materials in urban settings.